Geodetic Surfaces: Understanding Their Geometry and Topology

DMS-0310642
Alan J. Saalfeld and Tamal K. Dey

This collaborative project funded under DMS-0310642 and
DMS-0310354 is a CARGO full team award made under solicitation
http://www.nsf.gov/pubs/2002/nsf02155/nsf02155.htm.

Geodesists and computational geometry specialists use different
mathematical tools for building surfaces from sampled points. One part of
this project (DMS-0310642) encompasses cross-fertilization of tool
development along with merging and extension of the underlying mathematical
theories. The mathematical development will address issues in statistical
adjustment theory, meshing and other computational geometry applications,
and modified polyhedral Morse theory. Another part of the project
(DMS-0310354) deals with exposing and equipping undergraduates to work on such
problems by offering courses and summer REU workshops. The mission is to
involve research at all levels, based on the interplay of fundamental
ideas, such as curvature, polyhedral geometry, graphs on surfaces, and
combinatorial topology, eventually leading to advanced topics such as noise
handling in geodetic data, Morse theory, mesh generation of surfaces, and
smoothing.

Using statistical adjustment methods, traditional geodesists fit smooth
surfaces to noisy surface data. Using computational geometry, our computer
scientists have begun developing and will continue to develop efficient
algorithms for finding meshed surfaces that are close to and provably
homeomorphic to densely sampled smooth surfaces. The interplay between
differential and discrete geometry has sparked a renewed interest among
mathematicians and theoretical computer scientists to find algorithms for
computing topological invariants and for examining properties of surface
decompositions and of graphs on surfaces. The research offers challenges
to graduate students, undergraduate students, and research faculty alike.